Presidential Young Investigator Award: Design and Development of a Manufacturing Enterprise Architecture

The objective of this research effort is to design and develop manufacturing enterprise architecture (MEA), which will serve as a blueprint for the implementation of computer integrated manufacturing (CIM) in the factory of the future. This approach is necessary to the domain of manufacturing, especially in the context of CIM. During the initial phase of the research, the apparel/textile manufacturing sector will be used for the development of the Textile Apparel Manufacturing Architecture (TAMA). Methodologies currently available for the development of such an architecture, do not lend themselves well to the investigation since symbolic knowledge plays a crucial role in the successful operation of an enterprise (e.g., in production planning and scheduling). TAMA will subsequently be generalized to encompass other manufacturing processes. Issues related to a domain or industry independent view of manufacturing will also be investigated. Thus, the five-year research objective is not only to have a successful implementation of CIM in textile/apparel manufacturing, but also to have a generic MEA for the factory of the future.